Undergraduate Laboratory In Polymer Science And Engineering

We aim to establish an Undergraduate Laboratory in Polymer Science and Engineering to update the undergraduate engineering program at the University of Pennsylvania. The proposed laboratory will benefit undergraduate students by teaching important principles in polymer science and by introducing them to state-of-the-art equipment. The scope of the project involves required core courses, elective polymer courses and independent undergraduate research or design projects. The planned laboratory exercises include polymer syntheses, computer simulations, molecular and structural characterizations, morphology investigations and mechanical property measurements. Upon synthesizing their own polymers, thermodynamic, kinetic and mechanical properties will be investigated using a differential scanning calorimeter and a dynamic mechanical analyzer. This thermal analysis equipment will be a major component of the undergraduate polymer laboratory, because of the variety of polymer characteristics which these instruments can probe (e.g. glass transition, crystallization, moduli). A unique feature of the project is the incorporation of molecular modeling for illustrating chain conformations and tacticity and for predicting macroscopic properties from molecular structures. A hot stage is necessary to study the phase transitions and crystallization of polymers using an existing undergraduate light microscopy facility. This project is significant for three reasons: undergraduate laboratory facilities for the study of polymer science and engineering currently do not exist at Penn, our undergraduate engineers frequently find employment in polymer or polymer- related fields, and finally, polymeric materials are of immense commercial and scientific importance.